International Workshop on Historical Preservation of Structures with Fiber Reinforced Polymer Composites; June 10-11, 2004; Leece Italy

Abstract

This International Workshop on "Historical preservation of structures with FRP composites" to be held in Lecce, Italy, on June 10-11, 2004, following the First International Conference on Innovative Materials and Technology for Construction and Restoration (IMTCR-04).
In the last two decades, advanced composites (fiber-reinforced polymer or FRP) have gained
considerable worldwide interest and growing acceptance in the construction industry. The
historical preservation of structures is one of the most appealing applications of FRP
composites in the construction field. However, this application presents some critical
issues still not sufficiently investigated: long-term durability of FRP-repaired
structures; compatibility of the FRP system with the parent material; minimal invasiveness
and reversibility of the upgrade; optimal material selection.
All the aforementioned issues, of paramount importance for intervention on structures of
architectural/historical interest, are also relevant when dealing with any other category
of structure, when looking at long-term performance and global cost-benefit balance. Each
of these issues requires an interdisciplinary effort between researchers with
material-oriented and structural-oriented backgrounds and experts of architectural
restoration. The primary objectives of the workshop are to review the advances in research on the topic
of the workshop; provide to researchers with material-oriented and structural-oriented
backgrounds and to experts of architectural restoration the opportunity to interact and
develop a cooperation network; identify the gaps of knowledge on the sub-topics of the
workshop (long-term durability, compatibility, minimal invasiveness and reversibility, and
optimal material selection); identify major barriers to the effective utilization of
advanced composites for historical preservation; renew the human network of experts in the
field and integrate new entrants; prioritize and document the needs for effective research
policies and programs.